Operational and Equational Semantics of Process Algebras

Process algebras are a basic tool in the theory of concurrency: a mathematical model simple enough to analyze and understand, yet complex enough to illustrate many of the subtleties and problems of concurrency. They have been used for theory, programming language design, and specification and verification languages. For sequential languages, a few models of computation suffice. However, there are a variety of forms of concurrency, and hence a variety of process algebras. It if therefore essential to: (1) understand the connections between the many schools of process algebra, (2) have theoretical and computer tools for designing and analyzing process algebras, and (3) understand commonalties and metatheory of process algebra, to avoid unnecessarily repeating the same work in many settings. A general framework for investigating process algebras in terms of their structured operational semantics (SOS) is formulated and a surprising connection between SOS and equational definitions established. In particular, operations that respect the most commonly-used process equivalences are axiomatizable from their SOS specifications. It is believed that this connection is theoretically fundamental and of substantial practical value to researchers. An elaboration of this paradigm should unify two major communities in process algebra, and provide valuable tools to researchers in concurrency.